Hybrid/Future Power Technology

This project is developing curriculum that focuses on hybrid vehicle theory, operation, and service as outlined in the 2008 National Automotive Technical Education Foundation (NATEF) guidelines. The project addresses the need of current and future industry needs for skilled technicians in the emerging area of hybrid vehicles that is of significant importance to the country. The project improves the understanding of hybrid technology by automotive technicians and advances education infrastructure by providing a comprehensive curriculum that is not currently available. Seminars and presentations on hybrid and future power technology from the service side of the vehicle are being developed and presented to educators and students at the Four State Regional Technology conference and other national conferences.